Radio/Web Features and Classroom Activities from NSF STC's

The American Association for the Advancement of Science (AAAS) Directorate for Education and Human Resources Programs (EHR) will develop a series of media products featuring the scientists, engineers and research being conducted in Science and Technology Centers (STCs) supported by the National Science Foundation. They will accomplish this by sending reporters from their award-winning daily radio show Science Update to 14 of the 23 NSF STCs, plus selected Collaboratives to Integrate Research and Education (CIRE) sites. Over a period of 16 months, Science Update will produce and broadcast 48 radio features, heard by a weekly audience of over two million, as well as 24 short classroom lessons disseminated via AAAS's award-winning Science NetLinks web site for science teachers. NSF will also have access to stories and interview transcripts for other educational purposes.